WORKSHOP: Workshop on Building a Computational Grid, September 8-10, 1997, Chicago, Illinois

Developments in networking and software technologies are enabling the integration of geographically distributed compute, storage, network, and other resources into high-performance distributed computing systems or computational grids. These computational grids promise to revolutionize high-performance computing by enabling both the construction of tools providing qualitatively new capabilities, and wider access to unique resources such as supercomputers, scientific databases, and instruments. However, major technical advances are still required if they are to be broadly deployed and used. This workshop will bring together leading researchers and practitioners to survey the state of the art in metacomputing, discuss outstanding problems, and identify future directions for research and development. The final product of the workshop will be an edited book discussing the state of the art and research challenges in building a computational grid.